Conference: Combinatorics at the Confluence

Combinatorics at the Confluence is an International Congress of Mathematicians satellite conference to be held in Pittsburgh, Pennsylvania, on July 20-22, 2026, immediately preceding the ICM in Philadelphia. The meeting will bring together researchers across the breadth of combinatorics, including algebraic, enumerative, extremal, geometric, probabilistic, and topological combinatorics, with the goal of strengthening connections across a field that has grown rapidly and, as a result, has increasingly fragmented into subcommunities. By convening a unified gathering of international experts and early-career scholars, the conference will highlight shared principles, common techniques, and emerging directions at the interfaces with areas such as algebraic geometry, topology, probability, optimization, theoretical computer science, and novel methods from machine learning and artificial intelligence.

The conference is designed to broaden participation and amplify impact, with an emphasis on early-career researchers through travel support, wide dissemination of calls for participation, and a graduate-student-focused poster session. The event aims to serve as a model for integrative combinatorics meetings in the United States. The conference is organized in collaboration with the Institute for Computer-Aided Reasoning in Mathematics, and the program will feature a hands-on tutorial on using emerging machine learning and artificial intelligence tools in mathematical research. The website for the conference is at https://combcon.github.io/